POSE: Phase II: Implementing an Open-Source Ecosystem for the Interdependent Networked Community Resilience Modeling Environment (IN-CORE)

Accurate models of how different natural hazards will affect local infrastructure and community response are needed to help plan for these events and make communities more resilient. IN-CORE is an open-source software capable of modeling whole communities and cities subjected to natural hazards, from initial impact through recovery. This project will create an ecosystem of researchers, coders, insurance companies, community resilience planning professionals, government agencies, and other community stakeholders to support the long-term development, growth, and maintenance of IN-CORE. Key activities will include the establishment of a governance plan, recruitment of new users and software contributors, and other community building exercises and coordination mechanisms.

The IN-CORE software facilitates the development of scalable, interoperable applications that support optimized allocation of limited resources for hazard mitigation, planning, and post-disaster recovery. IN-CORE unites subject matter experts from various domains, enabling cross-disciplinary methods and approaches to community resilience planning. The open-source ecosystem will broaden the impact and sustainability of IN-CORE through further development of interoperable tools, reproducible workflows, and transparent data-sharing protocols. Datasets provided by the ecosystem can be used to validate and verify new models and implementations to advance resilience engineering, planning, disaster risk management, and other fields. Further, the ecosystem is envisioned as becoming a sustained community of practice for community resilience research.